Mathematical Sciences: Gaussian Processes and the Geometry of Normed Spaces

Professor Gordon's project involves a mixture of Banach space theory and probability theory. He will be mainly concerned with finite-dimensional geometry in Banach spaces and in quasi- normed spaces. Probabilistic inequalities figure in both the methods to be used and in the applications that are envisioned. The problems addressed by Professor Gordon's research have to do with keeping track of several random variables simultaneously. A random variable, one of the fundamental notions of probability theory, is a real-valued function on a space equipped with a probability measure, or less formally the numerical result of performing an experiment whose outcome is uncertain. One can put n random variables together to form an n- dimensional random vector. Probabilistically, its behavior will depend not only on the individual components, but on their interaction with one another. Various notions of distance in n- dimensional space give rise to various geometries in which the random vector can move; an advantageous choice of ambient geometry can yield interesting probabilistic information about the random vector. Further, random vectors can be used to explore the geometry. This sort of interaction between linear analysis and probability theory, currently quite lively, is at the heart of Professor Gordon's research.